Modelling Melt Motions and Mass Transport During Crystal Growth with a Magnetic Field

Single crystals of semiconductors such as silicon and gallium- arsenide are grown by several different processes including the Czochralski and float zone processes. Wafers from these single crystals are used for integrated circuits, optical devices and many other applications. In the liquid state, semiconductors behave as liquid metals and have excellent electrical conductivities. Therefore, a magnetic field can be used to control the liquid motion during crystal growth from a melt as in the Czochralski and float zone processes. Without a magnetic field, the melt motion in a Czochralski puller is turbulent. The turbulence produces fluctuations in the heat transfer at the crystal-melt interface. With such fluctuations, a point in the crystal face alternates between periods of crystallization and remelting, and this cycle produces a high microdefect density in the crystal. The progressive reduction in the dimensions of integrated circuit elements has led to a demand for crystals with extremely low microdefect densities. The application of a magnetic field during crystal growth eliminates turbulence and greatly reduces microdefect densities. The proposed research deals with the effect of a magnetic field on fluid motion in the melt during crystal growth. It is proposed to develop models of the melt motion and transport of dopants and impurities for the Czochralski process with a uniform transverse magnetic field and for the float zone process with a uniform axial magnetic field. For the Czochralski process, consideration will be given to the fluid motions for either a weak magnetic field or for a strong one, since these are the only cases with a nearly axisymmetric temperature field. For moderate magnetic field strengths, the temperature is far from axisymmetric, which would produce a poor crystal. For the float zone process, the first objective is to determine the shape of the free surface and the melt motion driven by the force from the induction coil which melts the feed rod. Next, the other components of the float zone melt motion will be treated.